SBIR/STTR Phase II: Ploidy Induction with Penaeid Shrimp for Protection of Investment in Selective Breeding

This Small Business Innovation Research Phase II project focuses on mass production of
triploid marine shrimp. Marine shrimp culture experienced exponential growth between 1980
and 1990, increasing from 5% to 28% of total world production. Since then, farmed shrimp
production has stagnated due to disease and water quality problems. Disease problems are
largely due to dependence on wild caught shrimp broodstock and post larvae, which carry
many untreatable viral diseases. A solution to this problem is closed-cycle culture, which
also permits genetic selection for improved production performance. To protect a breeder's
investment in specific pathogen free (SPF)stock, specific pathogen resistant (SPR) stock,
and genetic selection, it is highly desirable to sell only sterile post larvae. Triploidy is a
possible solution since triploids of other species are typically sterile and may exhibit
superior culture performance. In addition triploidy may allow for the culture of exotic
species in environmentally sensitive areas where exclusion of exotics is desirable.
Phase II will focus on development of tetraploid breeding stocks that will be crossed with
normal diploid stocks to produce triploid progeny.

The successful outcome of our R&D effort will result in significant changes in marine
shrimp culture. It will prevent competitors from propagation of shrimp stocks that have
been genetically selected for aquaculture performance. It will help stimulate large-scale
investment in SPF, SPR, genetic selection and closed-cycle shrimp culture. It will help
create opportunities to expand use of exotic shrimp species into environmentally sensitive
culture areas. Our company intends to be at the forefront of these opportunities.